Mathematical Sciences: Research on Integral Extensions of Noncommutative Rings

This research is concerned with integral extensions of noncommutative rings. The principal investigator will determine if an algebra, with a Hopf algebra action, is integral over the invariant subring. He will also examine when a smash product is integral over the coefficient ring. These results and techniques will be used to study the prime spectra of the rings involved. This project is in the general area of ring theory. A ring is an algebraic object having both an addition and a multiplication defined on it. These objects arise naturally in various branches of mathematics, physics and computer science.